Multilevel Algorithms for the Numerical Solution of Partial Differential Equations using Compactly Supported Radial Basis Functions

ABSTRACT
An extension of a meshless method for the numerical solution of
partial differential equations based on radial basis functions is
proposed. In particular, the combination of (1) radial
basis functions, (2) compact support, and (3) multilevel algorithms is
suggested for the collocation solution of nonlinear partial
differential equations. In this manner accurate and computationally
efficient algorithms can be designed. The research focuses on the
implementation of these algorithms, as well as the investigation of
some related theoretical issues such as convergence rates and
well-posedness.

Partial differential equations play an important role in many areas of
science and engineering. They are at the core of many mathematical
models used, e.g., meteorological models, molecular simulations in
chemistry and physics, simulations in such areas as semiconductor
modeling, study of materials, fluid dynamics, etc.. In this project we
focus on the design of algorithms potentially applicable to any of
these areas. Algorithms for high-performance parallel hardware are
also considered. The tools employed (radial basis functions) are of
fairly recent origin (1980s), but are slowly being accepted by a
growing number of scientists and engineers. Their main advantage is
that no complicated (and expensive) underlying mesh structure is
required as is for the standard finite element or finite volume
techniques.